High Energy Gamma Ray Astronomy, International Conference, October 2-5, 1990, Ann Arbor, MI, Award in Indian Currency

Description: This project supports the travel of four Indian scientists to the U.S. to participate in an international conference on "High Energy Gamma Ray Astronomy", planned for October 2 to 5, 1990 in Ann Arbor, MI. The conference will review the data which are now becoming available from a number of upgraded detectors which will provide a new look at a number of astrophysical objects such as Hercules x1, Cygnus x3, SN 1987. Topics of the conference will include: Observational data from accreting binary systems and isolated pulsars; Theoretical models of gamma-ray production; Diffuse cosmic-ray sources of high energy gamma-rays; Dark matter sources of gamma-rays; Implications of results for elementary particle physics; and Proposed new gamma-ray and neutrino detectors. The proposed Indian participants are senior and well-known physicists who should contribute to the discussions in the conference and benefit from the participation. Scope: The topic of the conference is in a field where the Indian scientific community is active. The selected scientists are likely to increase collaborative research between the U.S. and India and to help advance the field. The support of their travel fits well with the objectives of the U.S.-India Cooperative Science Program. Funding: Grant PHY89-21708 provides U.S.$4,000 for support of the conference organization. This action provides $10,000 in Indian currency for the travel of the Indian scientists.